Research Workshop on Geography and Race

This workshop will bring together geographers and scholars from other disciplines to discuss issues of race and geography in the United States. The workshop has four objectives: (1) to identify key topics in need of further study and to reinvigorate research activity in these areas; (2) to cultivate cross-disciplinary research on race relations that involves specialists from many fields and backgrounds; (3) to publish a comprehensive report that sets the agenda for future research; and (4) to increase minority presence and status in the discipline. The overall intent is to promote a broader and deeper geographical appreciation of American race relations and inequalities.